Informational Imperfections and Economic Behavior

This project attempts to expand our understanding of social and economic behavior in environments with imperfect information. The project consists of two main parts. The first part of the project examines clustering, while the second studies incomplete contracting. "Clustering" refers to situations in which people act similarly, even though their preferences are different. Examples include herd behavior (for example, the formation of cultural or sub-cultural standards of behavior), the common practice of dividing estates equally among heirs, and the proliferation of "me too" political candidates. This project explores a theory of clustering based on two key assumptions: decision-makers desire popularity or esteem, and actions are observable but true characteristics are not. In a class of mathematical models, these assumptions produce clustering of choices, even when true characteristics are not clustered. This part of the study will lead to novel predictions about consumption behavior in various markets. "Incomplete contracting" refers to the fact that contracts often fail to cover many contingencies. This project explores a theory of incomplete contracts based on two assumptions: certain actions are not observable by those who enforce contracts (for example, courts or arbitrators), and parties to a contract will interact again in the future. In a class of mathematical models, these assumptions imply that parties to an explicit contract may leave some provisions ambiguous in order to improve the implicit aspects of their agreement. This part of the study will provide insights concerning why contracts leave out certain contingencies even when including them does not seem very costly.